NSF Connections

9312359 Randall This award connects five higher education institutions to NSFNET through the CERFNet mid-level network. Faculty and students at the institutions will benefit from access to the resources of the Internet, including libraries and supercomputers. In addition, they will be able to communicate and collaborate with colleagues at other campuses in pursuit of research and educational projects. The award provides partial support of the project for two years. ***